Interative Algorithms and Software for Parallel Architectures for Partial Differential Equations

The objectives of this project are (1) to carry out research on iterative algorithms for solving large sparse systems of linear algebraic equations with emphasis on systems arising from problems involving partial differential equations and on the use of parallel computers, (2) to develop research-oriented prototype software based on the algorithms, and (3) to test the algorithms and software on a range of problems. Among the algorithms to be considered are parallel alternating-type methods, periodically generated iterative methods, rational iterative methods, and iterative methods for solving large sparse nonsymmetric linear systems.